A Distributed Testbed for Real-Time Active Sensing

Image processing equipment will be provided for researchers at the University of Pennsylvania in the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) (1) design and implementation of distributed real-time kernel for active sensing (2) real-time integration, control and coordination of sensors (3) language constructs for distributed real-time integration, control and coordination of sensors (4) language constructs for distributed real-time programming, and real-time multiple image fusion